Evolutionary Genetics of the Est-6 Locus in Drosophila

The goal of this research is to determine how much molecular variability exists at a gene coding for the structure of an esterase enzyme, EST 6, in Drosophila melanogaster and to understand the meaning of this molecular variation. Esterases are particularly interesting genes to study because they are representative of a class of highly variable loci found in many organisms including humans. The general objective of the work is to assess the hypothesis which argues that changes in the expression of genes are more significant in evolution than changes in the regions of genes which code for the structure of proteins. Dr. Richmond will identify elements responsible for the regulation of the Est- 6 gene and a similar gene, Est-P. He hopes to associate variation which controls expression with variation which controls the structure of two related esterases. Studies of molecular variation in Est-6 genes from different geographic populations of Drosophila melanogaster will help to identify the molecular basis for geographic variation. Finally, Dr. Richmond hopes to obtain molecular clones for the Est-6 genes from two other Drosophila species related to Drosophila melanogaster to determine what changes have occurred in these genes during the process of speciation. Recombinant DNA technologies will be used to clone and manipulate esterase gene sequences. Factors regulating the expression of esterases will be investigated by using transposable-element mediated transformation of Drosophila embryos with cloned esterase genes. Procedures for the amplification of specific genes from total genomic DNA will be used to obtain DNA for direct nucleotide sequencing. Reliable data on the nature and extent of genetic variation will permit inferences on how the forces of evolution act to mold variation at the molecular level into adapted phenotypes. This work will also contribute to an understanding of the mechanisms of gene regulation and how the evolution of regulation occurs.